Interactive Concurrent Visualization of Unsteady Flows on Parallel Architectures

Simulations of fluid dynamics, such as the flow of air over an airplane
wing, are vital for understanding the fluids, but cannot be computed fast
enough for humans to interact with the simulation. This project will
develop an efficient, accurate, integrated environment for the simulation,
visualization, and analysis of time-dependent turbulent flow fields using
advanced physical and numerical models. The investigators will create
low-order (relatively cheap and fast) approximations to an existing
Navier-Stokes code, and use the approximations to provide interactive
explorations of the simulation database while the main code continues to
run. They will also add a graphical user interface to the existing code to
allow remote visualization. The key subtasks in this process will include:

* Developing physically-based models, called surrogate models, of the
compressible Navier-Stokes equations that sharply reduce the cost of the
simulation yet capture the dominant flow structures.

* Using the surrogate models to visualize particle paths, streaklines, and
pathlines interactively while the full simulation continues.

* Using the flow features to assess the error of the surrogate models.

* Developing efficient parallel algorithms for the surrogates, and
assessing more advanced strategies for incrementally constructing and
adapting them to simulation data.